Regulation of Smooth Muscle Contraction

Smooth muscle cell is the contractile component of many body organs such as blood vessels, lung airways, intestines, and uterus. Therefore normal functions of smooth muscle cells are intimately related to the normal function of body systems such as regulation of blood pressure, lung ventilation, digestion and reproduction. Smooth muscle cells are similar to muscles involved in locomotion (skeletal muscle) in using ionized calcium (Ca2+) as the regulator of contraction. However, unlike skeletal muscle, smooth muscle does not contain the Ca2+-binding protein called troponin involved in the regulation of contraction in skeletal muscle. Therefore, the mechanism(s) by which Ca2+ regulates smooth muscle contraction is still not fully understood. The broad objective of the proposed research is to understand the Ca2+-dependent regulation of smooth muscle contraction by combining methods of muscle mechanics, protein biochemistry, and mathematical modeling. Based on biochemical studies, it is understood that smooth muscle contraction is a result of cyclic interactions between two proteins - actin and myosin. In a smooth muscle cell, actin molecules combine to form a filament-like structure (thin filament). Myosin molecules also combine to form a filament-like structure (thick filament), but in addition, the thick filament contains projections from individual myosin molecules called crossbridges which can interact cyclically with the thin filament. Force production or muscle shortening are results of the sliding of the two filaments passing each other due to cyclic interactions of the myosin crossbridges with the actin filament. The regulation of the acto-myosin interaction in smooth muscle is not fully understood, but phosphorylation of a protein subunit on the myosin crossbridge appears to be involved. Some of the model assumptions and predictions have been verified experimentally, but several aspects of the model remain untested. The specific aims are: (1) to test the remaining model assumptions experimentally at tissue and cellular levels, (2) to test the model predictions under controlled experimental conditions, and (3) to determine the utility of this model in generating testable predictions on other aspects of smooth muscle contraction. The dual emphases on careful experimentation combined with in-depth integration of information assisted by mathematical modeling should provide useful insights into the understanding of contractile function of smooth muscle cells.